Environmental Regulation and Labor Demand

This research will investigate the effects of environmental regulation on the demand for labor. The changes that these regulations induce in the technology of production will affect labor demand in the manufacturing sectors of the developed world and in the rapidly growing manufacturing sectors of the developing world. Worldwide growth in manufacturing output and trade has prompted concern for the effect of economic growth on environmental quality. Regulatory stringency is expected to increase in both the developed and the developing world. Arguments against regulation are often framed in terms of a tradeoff between jobs and environmental quality. The investigators argue that existing estimates of the effect of investment in pollution abatement on labor demand are conflicting and subject to a number of biases. Estimates of job loss provided by economists are likely to be biased downwards, as much of the observed investment is conducted in anticipation of regulatory change by firms who face low compliance costs. Estimates of job loss provided by firms are likely to be biased upwards, as they ignore the effect that the same regulatory changes will have on their competitors prices for output. This project will provide estimates of the effect of regulation on labor demand free of these biases. The selection bias will be treated by using regulatory as instrumental variables, thus restricting attention to firms forced to invest in pollution abatement by regulatory changes. The upward bias in firms' estimates is addressed by separately estimating the output elasticities of labor demand and the marginal rate of technical substitution between pollution abatement capital and labor. Data on state and local regulatory changes will be combined with plant level data on pollution abatement investment and on employment from the Census of Manufactures to provide estimates. To ensure that the instruments have explanatory power, additional data will be collected on s harp changes associated with two regulatory programs: The South Coast Air Quality Management District in Southern California and the Delaware River Basin project. Estimated effects will inform policy makers about how large the tradeoff really is between environmental quality and manufacturing jobs. ***